Proposal to Establish an REU Site in Computer and Information Science and Engineering at Caltech

Research experiences for undergraduates will be offered through the Caltech Summer Undergraduate Research Fellowship (SURF) program. The SURF program was started in 1979 and from 1979-1987 621 students participated in research projects. During the 10-week period in the summer the students will participate in technical seminars, roundtable discussions and communications workshops. Ten students will be selected from institutions where research opportunities may be relatively limited including Historically Black Institutions (HBUs). Contacts with the Atlanta University Center, Howard University, Jackson State Univeristy, and Morehouse University have already been established. Undergraduate research experiences will include developing new algorithms or scientific codes and systems software for the hypocube, and working within-house hardware development projects. An award of $39,500 is highly recommended for this meritorious project under the REU programs.